Perturbed Angular Correlation (PAC) Studies of Defects in Silver Halides

Multivalent impurity centers in silver chloride and silver bromide play an important role in photographic processes. This project uses perturbed angular correlation measurements of indium-111, which is introduced as a probe nucleus in the silver halides. The research addresses the structure of the indium-vacancy complex, electron and hole trapping at the defect complexes, stability of the complexes, the dynamics of vancancy motion around the complexes, and the metastability of the configurations following nuclear decay to cadmium -111. The primary objective of the research is to improve the understanding of defect properties in halides, and to relate the results to the role that these or similar defects play in the photographic process. The research involves a university-industry collaboration between the University of North Carolina and Eastman Kodak Co., Rochester, New York.